RIA: Optically Interconnected Wafer Scale Synchronous Processor Arrays

This research studies the feasibility of using free-space optics to interconnect large, monolithic arrays of electronic processing elements (PEs), fabricated at or near the wafer scale, into topologies that are commonly characterized as having "high wire area". Two long-standing problems are addressed in this project. (1) Conventional approaches to wafer-scale integration must forfeit considerable area to provide defect tolerance in the form of redundant or programmable interconnects and a sufficient density of spare PEs. (2) The poor performance of cross-wafer electrical interconnects and the dominance of wire area in the 2-D layout of highly connected topologies strongly favor mesh-like, essentially two-dimensional, locally connected networks. In this research, electronic PEs are provided with optical inputs for all signals entering or leaving the PE. Light signals emitted perpendicularly from the substrate constitute the input to an imaging system which, by virtue of specifically designed diffractive elements, realizes a mapping from the optical source locations to the detector locations that implements the desired interconnect. Because inter-PE connection are optical, the additional complexity required to support defect tolerance is absorbed into the imaging system instead of the circuitry. Areas of investigation include systems and architectural aspects of optically interconnected parallel machines, optimal design procedures and fabrication technology for diffractive elements, technology for light modulators on silicon, and imaging system engineering. A prototype system comprising a butterfly machine for computing fast transforms will serve as an experimental vehicle for investigation of technological and systems aspect of optically interconnected wafer-scale processor arrays.